Organometallic Chemistry - Synthesis and Reactions

This project, in the Inorganic, Bioinorganic and Organo- metallic Chemistry Program, involves an investigation of the basic reactivity patterns of decaborane and derivatives, and of cyclopolymerization reactions of diallyl derivatives of various nonmetal elements. Of especial interest in the former area are transition metal derivatives of decaborane that might serve as precursors for metal borides, in addition to new compounds of various metalloids. In the latter area, ring opening reactions at the nonmetal center will lead to functional groups that can be used to specifically tailor the polymer for various applications. %%% The immediate goal of this project is to further advance our fundamental knowledge of chemical reactivities. Ultimately, it is such knowledge that will allow the development of new and advanced materials.